A Pattern Recognition Approach to Software Engineering Empirical Modeling

The ability to plan, control and predict software processes is facilitated by the measurement of software development artifacts, even though construction of quantitative models from these artifacts is a difficult task. Explanatory variables are potentially numerous and heterogeneous; data sets are replete with outliers; the quality of the data collection may be questionable; and often only partial information is available for building the model. Even so, there is a need for customized modelling techniques, procedures, and tools to facilitate the construction of local tools within a specific development environment. Stochastic modelling is needed for three kinds of activity within the development process: planning, monitoring and control, and post-mortem analysis and evaluation. Models are used to enable managers to plan and to take corrective actions to meet budget, schedule and quality requirements. This research is aimed at continuing the development of an approach called Optimized Set Reduction with the aim of addressing the specific constraints and needs of software engineering.